Dynamics of Nonlinear Differential Equations

DYNAMICS OF NONLINEAR DIFFERENTIAL EQUATIONS (DMS-0500674)

John Mallet-Paret
Division of Applied Mathematics
Brown University

We propose to study fundamental qualitative properties of
various classes of nonlinear dynamical systems, in particular as
they arise from differential and difference equations. The systems
to be considered include those from ordinary and partial differential
equations, systems of lattice differential equations (that is,
spatially discrete systems), differential delay equations, and
max-plus operators. Issues such as the existence of equilibria and
their stability, spontaneous formation of spatial patterns and spatial
chaos, the existence and qualitative properties of traveling fronts,
and the appearance of spontaneous temporal oscillations will be studied
for these problems. In addition to the established techniques (both
theoretical and numerical) from differential equations and dynamical
systems, a significant portion of the proposed research involves the
development and implementation of new tools and techniques with which
to study these systems. Among the techniques to be employed are those
involving singular perturbations, invariant manifolds, exponential
dichotomies, and topological methods.

We are developing new mathematical techniques for analyzing and
understanding differential equations and difference equations. Such
equations typically arise as models in numerous areas of science. In
broad terms, these types of mathematical systems model time-dependent
or evolutionary behavior, as it occurs in a wide range of scientific
areas, including biology, chemistry, electrical circuit theory, image
processing, and material science. Although this is a very broad scope
of inquiry, the specific problems to be studied exhibit features in
common -- spontaneous formation of patterns, self-sustained oscillations,
regulation by internal feedback (often with time delays) -- which can be
analyzed with some of the basic tools of dynamical systems theory. It is
expected the resulting mathematical advances arising from these studies
will increase the knowledge of, and will provide insight into both the
abstract theory of dynamical systems, as well as the scientific areas of
inquiry.